Supplement: The Use of Photopolymers to Provide Real Time Control of Gas Separation Membrane Properties

There are photosensitive polymers which undergo transformation (isomerization, ring closure, etc.) upon irradiation by UV light. Preliminary Japanese work indicated that the permeabilities of enzymes were reduced by a factor of ten when a polymer membrane was irradiated. This research will explore and extend the concept to gas separations, to cover eight commercially important gases and a number of photosensitive polymer membranes. The research will include preparation/characterization of membranes, permeability (solubility and diffusivity) measurements, and interpretation of the data by existing theories.